PRS 11/18/06 Release Functional Verification 15

Validating Feb 2018 Rls.. Abstract changes.. for post award as DGA.. new text should not be visible which has awd eff date prior to 03/01/2018
Validating Sept Rls eJ1-22 Story